The Third U.S.-Korea Forum on Nanotechnology: Active Nano Device & Systems

Abstract
OISE-0616524
JHON, Myung, Carnegie-Mellon University

This award supports participation of U.S. researchers in the "Third U.S.-Korea Forum on Nanotechnology: Active Nano Devices and Systems" to be held April 3-5 in Seoul, South Korea. The U.S. organizer is Myung S. Jhon, Professor of Carnegie-Mellon University and the Korean organizer is J.W. Lee, Director of National Program for Tera-level Nanodevices in South Korea. The Forum will host approximately 50 participants from the United States and South Korea who will present and discuss new research in the Nano Devices and Systems field including, nanoelectromechanical systems, nanobiodevices, transistors, amplifiers, actuators, molecular machines and plasmonics, among other topics. The workshop will advance a common platform for partnerships in nanotechnology established by two previous U.S.-Korea bi-lateral workshops, and initiate a new partnership area for scholars studying nanotechnology and society. The exchange of ideas between U.S. and Korean experts will enable U.S. participants to advance their own work and set the stage for future collaborative projects. Seminar orgainzers have made a special effort to involve both senior and junior researchers.